H-Bonding Control of Molecular Self-Assembly

The focus of this research will follow three major themes. First, extensive structure activity relationships will be established in the formation of hydrogen bond stabilized aggregates synthesized as supercritical carbon dioxide-derived gels . Second, functionality will be incorporated into the aggregates so that the potential for novel recognition and catalytic properties can be realized. Third, ordered assemblies with controlled pore size in solution will be investigated with application to the preparation of supercritical carbon dioxide-derived aerogels.

With this renewal award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Andrew D. Hamilton from the Department of Chemistry at Yale University. Professor Hamilton will focus his work on the development of hydrogen bonding as a route to controlling the structure and properties of molecular aggregates in solution, in the solid state and in the formation of both xerogels and aerogels. It is probable that materials for real-world applications will arise from this approach.